Plasma Science Committee

This grant will support the Plasma Science Committee of the National Academy of Sciences-National Research Council. The Plasma Science Committee convenes meetings, receives briefings from agencies, and forms study panels to prepare reports on a broad range of issues important to the health of basic and applied plasma science.